Integration of Polymer Processing Into A Flexible Manufacturing System for Undergraduate Education

This project targets the vital expansion of a CAD/CAM program into the area of designing and manufacturing with plastic components. The system is integrated with the existing flexible manufacturing system (FMS) facility to provide a comprehensive undergraduate CAD/CAM capability. This project's specific goals are to provide undergraduate students with hands-on experience of microprocessor controlled plastic injection molding systems. This adds a totally new and up-to- date dimension to the undergraduate curriculum. The system, a BOY 50M, allows small thermoplastic components to be produced, either automatically, when interfaced to the FMS, or manually, when operated as a stand-alone system.